Collaborative Research: Evaluation of Paleointensity for Dating MORB on the EPR near 9°N

This work will integrate magnetic anomaly, geochemical, and paleointensity data to address a variety of ridge crest processes. The working hypothesis is that coherent features in the magnetic anomaly/inversion records, especially within the Brunhes including the Central Anomaly Magnetic High, are most probably due to geomagnetic intensity variations. A magnetic study of submarine and rock core samples from the East Pacific Rise near 9 degrees north will be conducted to corroborate the geomagnetic origin of critial features in the anomaly patters with glass paleointensities, establish if there is indeed a link between the glass paleointensities and basalt magnetizations, and explore the utility of the glass paleointensities as a dating tool.